Coupled Atmosphere-Ocean Modelling

This is a grant to study El Nino-Southern Oscillation mechanisms and predictability using relatively simple coupled atmosphere-ocean models. The goals of this research are to: 1. Test and implement a new atmospheric model for the surface winds based on boundary layer considerations. The atmospheric model will involve modeling the time dependent behavior of the atmospheric boundary layer over the ocean. 2. Couple the new atmospheric model to an existing ocean model and examine the mechanisms for ENSO in this new coupled model 3. Conduct stability and predictability studies on the new coupled atmosphere-ocean model. 4. Examine the adequacy of the simple ocean model by coupling simple atmosphere models to general circulation models of the ocean. This research is important because it seeks to enhance understanding of the dynamics of the interactions of oceans and the atmosphere and how these interactions modify the earth's climate.